Research Experiences for Undergraduates in Chemistry at the State University of New York--Stony Brook

Professor Andreas Mayr and other members of the Chemistry Department of the State University of New York at Stony Brook are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend nine (9) weeks each summer actively engaged in a variety of research projects. Projects range from chemistry in molecular and cluster beams to molecular mimics of hydrolase enzymes. Students will participate in weekly informal lunch meetings, a seminar series, and a mini-symposium at the end of the program. Minority students will be able to participate in other summer programs on campus designed to create an encouraging social environment.